Floral Development and Phylogenetic Relationships of the Haemodoraceae

Flower development in the plant family Haemodoraceae and close relatives will be studied using light and scanning electron microscopy by Dr. Michael Simpson of San Diego State University. The purpose of the study is to clarify past evolutionary relationships within this group. Specific objectives include: 1) recognizing new descriptive characters; 2) assessing character homology (similarity by common ancestry); 3) determining character ancestry; and 4) testing hypotheses of evolutionary change. The project is innovative in utilizing morphometrics, mathematical techniques for tracing changes in shape and form. Morphometric data will be acquired using a computerized video image analysis system that measures coordinate, length, and area parameters. Developmental stages of ovules, seeds, and ovary will be traced by establishing a relative time scale, calibrated by recording embryological stage, the relative position of the bud in the inflorescence, or the length of major floral organs. Statistical procedures, including bivariate plots and principle components analysis, will be used to trace developmental changes. By comparing growth rates of organs relative to known ancestor/descendent relationships, the possible occurrence of heterochrony (change in rate or timing of development) in structural evolution will be tested. Finally, an attempt will be made to assess the possible adaptive significance of floral organs by correlating these developmental parameters with biogeography, ecology, and pollination mechanisms.//